Transcriptional Regulation of Steroid Gene Networks

Hormones are important physiological molecules which control a variety of cellular processes during both development and homeostasis of most all plants and animals. Steroids represent one class of hormones found in mammals, they are produced by several small glands as by-products of cholesterol. Steroid hormones circulate through the blood and enter cells by passive diffusion. The most important mediators of steroid effects are steroid receptor proteins, which when bound with the steroid molecule, form activated complexes that ultimately regulate the expression of specific target genes in the nucleus. The integration of signals coming from multiple steroid receptor interactions in a variety of cell types, results in a coordinated response to changes in the enviroment. For example, most steroid molecules differ by only a few atoms of carbon and oxygen, yet increased stress leads to secretion of glucocorticoids signalling the liver to release stored glycogen while seasonal changes in the weather cause male birds to alter the production of androgens thereby directly influencing certain brain cells that control mating songs. Recent advances in the molecular biology of steroid hormone action now make it possible to begin studies at the cellular level to investigate the mechanisms that control these seemingly intricate responses. We propose to perform a series of molecular analyses using cloned androgen and glucocorticoid receptor sequences to identify critical residues important for binding of these receptors to the regulatory regions of responsive target genes. Using three basic approaches these experiments should: 1) identify the nucleotide sequence of optimal receptor binding sites on DNA, 2) delineate structure- function relationships of the androgen receptor which distinguish it from the glucocorticoid receptor, this comparative analysis may reveal important differences between the receptors would explain the observed cell-specific effects of these hormones, and 3) integrate androgen and glucocorticoid receptor sequences into the chromosomes of cells that normally lack these receptors and determine how this alters their hormonal responsiveness. We anticipate that as a result of these basic studies aimed at dissecting the molecular interactions of steroid receptors with target gene DNA, we may gain a greater understanding of the circuitry which controls complex hormonal responses to developmental and environmental cues.